Bifurcation in Dynamical Systems with Multiple Time Scales

Guckenheimer
0101208
The investigator studies slow-fast decompositions and
bifurcations of trajectories in dynamical systems with multiple
time scales. This extends the theory of bifurcation in generic
families of dynamical systems to those with two time scales.
Emphasis is placed upon relaxation oscillations, periodic orbits
that have both slow and fast segments. The initial stages of the
work seek a classification of degenerate decompositions appearing
in periodic orbits of one parameter families with relaxation
oscillations. Geometric methods are used to determine
bifurcations associated with each degenerate decomposition.
Numerical investigation of examples is used to motivate the work
and to ensure that the results are directly applicable to
biological models. Together with collaborators Kathleen Hoffman
and Warren Weckesser, the investigator is reexamining a classical
example, the forced van der Pol system that gave birth to the
discovery of chaos for dissipative dynamical systems, and expects
to give a full description of the bifurcations that occur within
this system. He also develops algorithms for the computation of
structures that are difficult to compute with existing methods.
Rhythmic phenomena are ubiquitous in biological systems.
Examples include the heartbeat, the cell cycle, circadian
rhythms, legged locomotion, and electrical signals in the nervous
system. Most of these involve multiple time scales. The
investigator pursues new mathematical theory and computational
methods that apply to dynamical systems with multiple time
scales. Emphasis is given to models of neural systems, an area
in which the presence and importance of complex dynamics are
manifest. The investigations draw upon decades of research in
characterizing generic phenomena observed in dynamical systems
with a single time scale. The resulting body of mathematics,
sometimes called chaos theory, needs extension and modification
to fully explain the behavior of systems with multiple time
scales. Those extensions are the goal of this project. On a
longer time frame, the project lays foundations for coming
generations of biological models for cellular processes such as
gene expression and signal transduction. New biotechnology leads
to ever more complicated reaction networks that are simulated as
dynamical systems. This project produces results that aid the
implementation and interpretation of such simulations of complex,
multiple time scale dynamical systems.